Long-Term Effects of Reconstruction on Vulnerability as Defined by Urban Patterning and Urban Form

Area wide development patterns established during post-earthquake reconstruction may have significant long term effects on regional patterning of vulnerability levels. In Anchorage urban patterns that were sanctioned twenty-five years ago during the reconstruction following the great Alaska earthquake are now an integral part of the community's fabric. Using Anchorage, Alaska, as a case study, this proposal examines how the reconstruction process has impacted and continues to impact development of urban form and, thereby, the configuration of future risk and vulnerability levels. Vulnerability encompasses location of uses; location of building types and clusters, the distribution of critical facilities (hospitals, fire stations, etc.); and the linkages between these clusters. The project will analyze the implications of changes in urban patterns and form on seismic vulnerability to damage, life loss, and system disruption, especially during the emergency recovery period. A time series analysis of urban form/vulnerability levels at regional and neighborhood scales focuses on the evolution of the three basic urban form variables: building groupings and site utilization patterns; open spaces; and linkages. Anchorage, Alaska, is used as a case study because it lends itself to a time series analysis of development patterns which emerged from post-earthquake reconstruction after 1964.